EAGER-Training Chief Scientists for the Ocean Research of Tomorrow: A Continuation

This project will be conducted by Clare Reimers of Oregon State University
and plans to utilize US academic research vessels, R/Vs New Horizon and Endeavor, for two training program cruises involving 14 participants per cruise. Members of the UNOLS Office and an impressive number of scientists from throughout the oceanographic community also will contribute to the effort as either at sea mentors, workshop speakers, or lenders of equipment.